2011 Nanoelectronic Devices for Defense & Security (NANO-DDS) Conference: A Request for Funding to Support Attendee Participation. To be held Aug. 29 to Sept 1, 2011 at(NYU-POLY)

Intellectual Merit: The Nanoelectronic Devices for Defense & Security (NANO-DDS)
Conference is a bi-annual science and technology event which has been organized for the
purpose of reviewing the evolving research and development (R&D) activities in the
arena of nanoelectronic devices that have direct relevance to critical capability needs for
national defense & security in the future. The charter of this special conference is to unify
and focus the very broad array of nanoelectronic and supporting nanotechnology
activities that are currently engaged in reaching the long expected applications payoffs in
core defense and security related areas such as sensing, data processing, computation and
communications.

Broader Impacts: The inherent multidisciplinary nature of the nanoscale science &
technology (Nano-S&T) field and the potential for impacting high priority objectives
motivate the unique organization of this 2011 conference. The conference will support participation of many new faculty and graduate students.